SGER: Efficient Second Harmonic Generation Based on a NovelIntensity-Modulation Quasi-Phase-Matching Technique

This is a proposal requesting consideration for a Small Grant for Exploratory Research (SGER) award. The proposal describes a one-year activity in which the PI will conduct an investigation on a new concept using intensity modulation to achieve quasi-phase matching (IMQPM) for improving the efficiency of second harmonic generation in a nonlinear optical crystal. The proposal is aimed at demonstration of this new concept using a single channel waveguide structure on LiNbO3 and analyzing the possibility of implementing the IMQPM in a dual-channel waveguide structure.